High Latitude Ionospheric Plasma Dynamics

This grant provides the NSF support for a collaboration between Johns Hopkins Applied Physics Laboratory and British Antarctic Survey (BAS) to operate a High Frequency coherent scatter radar at BAS's Halley Bay Station. The radar is the southern component of a pair of similar radars while the northern component is at Goose Bay Labrador, which is located on the same geomagnetic field line as Halley Bay. Such a pair is said to be "magnetically conjugate". The array is called PACE (Polar Anglo-American Conjugate Experiment). In addition, the Halley Bay radar has a field of view which includes the ionosphere above the well instrumented USAP South Pole Station. Together the radars can map the density and velocity of the ionospheric plasma in the polar caps of both hemispheres, providing unprecedented opportunities to study conjugate phenomena and how the Earth's high latitude ionosphere responds to changes in the solar wind. This project is an important contribution to the International Solar Terrestrial Physics (ISTP), Global Geospace Modelling (GEM) and Coupling, Energetics and Dynamics through Atmospheric Regions (CEDAR) programs.//